MRI/RUI Aquisition of a Single Crystal Diffractometer to Support Synthetic Chemistry Research at California State University Northridge

With support from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at California State University in Northridge will acquire a single crystal X-ray diffractometer. This equipment will enhance research in a number of areas including the following: a) bifunctional transfer hydrogenation catalysts based on entirely hard donor ligand environments; b) discovery of new methods and strategies for the synthesis of complex molecules; and c) development of new synthetic methodologies in inorganic chemistry.

The X-ray diffractometer allows accurate and precise measurements of the full three dimensional structure of a molecule, including bond distances and angles, and it provides accurate information about the spatial arrangement of the molecule relative to the neighboring molecules. These studies will have an impact in synthetic chemistry.